Cyber-Physical Systems Week (CPSWeek 2009)

This award is for the support of student participation in CPSWeek 2009 and the CPS Forum, San Francisco, California, April 13 through April 17, 2009, California. The objective is to attract a diverse student population to research careers in Science, Technology, Engineering and Math (STEM) areas contributing to the emerging field of Cyber-Physical Systems. This NSF grant will be used to ensure the broadest possible student participation in CPSWeek events.